Travel Support for the Sixteenth International Quantum Electronics Conference, Tokyo, Japan, July 18-21, 1988

This grant provides travel support for US invited speakers to attend the 16th International Quantum Electronics Conference (IQEC), Tokyo, Japan, 18-21 July 1988. IQEC has been, since its establishment in 1959, the major international forum for the presentation and discussion of all aspects of quantum electronics, emphasizing basic scientific research in lasers and electro-optics. Additional emphasis will be given this year to semiconductor lasers, fiber optics and their applications, areas which are now studied intensively in Japan. Because of the potential difficulties which high travel expenditures to Japan are causing for prospective US attendees and the need to have strong representation from the American scientific community at this important international conference, this proposal requests partial travel support for invited speakers and other meritorious scientists from the US academic research community.